Post-Seismic Monitoring of the October 17, 1989 Loma Prieta Earthquake Using GPS

This ward provides mathching funds for purchase of four Trimble GPS receivers to be deployed to minitor ongoing deformation following the Loma Prieta earthquake in California.